U.S.-China Cooperative Research: Chinese Plants as Sources of Biologically Active Natural Products Against Insects and a Mite

The objectives of this cooperative project between James Klocke and Manuel Blandrin, NPI, Salt Lake City, Utah, and Chiu Shinfoon, South China Agricultural College, Guangzhou, China are to isolate, identify and bioassay natural products derived from three species of Chinese plants known for their insecticidal properties and to test those products against a number of economically significant pests such as cabbageworm, citrus redmite, and tobacco budworm. This cooperative research supports the objective of the U.S.-China Program which is to promote opportunities for cooperation in basic science between scientists of the U.S. and China on projects of mutual interest and benefit to both countries. In addition to defining currently unknown structural properties of certain plant constituents, this research has the potential of identifying naturally occuring plant derived insecticides of economic and ecological significance to both countries. This proposal is a carefully considered and well documented research plan involving scientists with excellent credentials. The Chinese principal investigator, Dr. Chiu, has an excellent international reputation in the entomological field of plant pesticides and the U.S. scientists are well known for their work in phytochemical research. This project is jointly sponsored by NSF and the Chinese State Education Commission under the U.S.-China Protocol for Cooperation in Basic Sciences signed in December 1980 and extended April 1986. This is a new two-year award. Under the terms of the U.S.-China Agreement in Basic Sciences, all costs incurred in the U.S. will be covered by NSF and all costs in China will be covered by the Chinese government.